Expansion of Advanced Physics Laboratory to Include Experiments in Low Temperature Physics

The project will improve the advanced undergraduate laboratory course by adding a group of experiments in calorimetry and transport properties at low temperatures. The project will provide students an opportunity to employ current computer technology for on-line data acquisition analysis using modern instrumentation. Students will also learn vacuum techniques, and perform experiments that yield significant physical results.